TransPAC: A High Performance Network Connection for Researchand Education Between the vBNS and the Asia-Pacific AdvancedNetwork (APAN)

NCR9730201
McRobbie
This award to Indiana University, entitled "TransPAC: A High-Performance Network Connection for Research and Education between the vBNS and APAN" provides support for a High Performance International Internet Services connection between the networks of the Asia-Pacific Advanced Networking consortium (APAN) and NSF's very high-performance Backbone Network Services (vBNS). APAN presently involves advanced networks in Japan, Korea, Singapore and Australia and is expected soon to involve other countries in the Asia-Pacific region. The overall consortium (APAN plus Indiana University) is called TransPAC. TransPAC proposed to provide a 35 Mbps link between the Tokyo node of APAN and the vBNS via the NSF-funded international connection point for high-performance networks, STAR TAP, in Chicago. TransPAC will initially provide a high performance connection for about 50 joint US/Asia-Pacific projects that will leverage an estimated $200 million of research over the period of the TransPAC award.